The Ninth Dissertations Symposium on Chemical Oceanography

Funding is requested to support the Ninth Dissertations Symposium on Chemical Oceanography (DISCO) to be held February 198-23, 1990 at the East-West Center, University of Hawaii campus, Honolulu, Hawaii. Twenty-six chemical oceanography Ph.D candidates and new doctorates will meet for five days in formal and informal sessions to present their theses dissertations, contribute to discussions, participate in working groups, and meet with other attendees and sponsors to discuss their work and future activities. The sponsors, NSF, ONR and NOAA, will delineate the federal government programs in chemical oceanography and present avenues of potential support. The proceedings will be published. This will be the ninth in a series of symposia jointly supported by the National Science Foundation (NSF), Office of Naval Research (ONR), and the National Oceanic and Atmospheric Administration (NOAA).